The Changing Global Enviroment: An Investigative Curriculum

Worldwide, there is great and justifiable concern about global climate and environmental change; in the United States there is also justifiable concern over lack of science literacy. Both issues will be addressed through the development of this curriculum. Materials will be developed for a course in earth systems science for upper-level high school students. Logistically, curriculum materials will build on the sophisticated, low-cost, monitoring technology already developed by TERC. Conceptually, these materials will use a constructivist approach (hands-on, active learning, including real research) to illustrate the principles of systems and classical ecology. The curriculum will address several important concerns in science education, and will empower students to understand the dynamic and interactive nature of ecosystems. The modules will be earth-science/ecologically oriented, integrated with several other sciences, and developed for the upper high school level student. The materials are designed to be integrated into existing curricula.